Axiomatic models of scheduling: fairness and incentive compatibility.

This research project will apply microeconomics, in particular game theory, to the analysis of
queuing and scheduling protocols. Previous work on this problem has focused on the non
cooperative behavior of participants - in particular the decision to join a queue
or "balk"-, and the incentives to reveal one's waiting cost. It relies on cash
transfers to align incentives with effciency.

The intellectual merit of this project is twofold. Firstly it focuses on
fairness and cooperative stability, in particular the ideas of limited liability and
the strategic tranfers of jobs. Secondly it develops a probabilistic model of
scheduling,where cash transfers are ruled out and the server randomly orders
the different jobs according to their processing times and release dates. It is
contrasted with the more familiar quasi-linear model, where cash transfers are
feasible and disutilities are linear in waiting time until job completion.

On the fairness side a first concern is to limit a user's liability to wait, i.e.,
to place as tight a cap as possible on his worst case delay, given his own characteristics
and the number of potential other users. The PI will develop a probabilistic model and will analyze different scheduling methods to determine which method best achieves social goals.

When the central processor cannot monitor easily the identity of the final consumers of
the jobs it processes, customers can merge their jobs into a single job, use straw men
to split a single job into several small jobs, or transfer parts of their jobs within
a coalition. The scheduling methods for which these cooperative maneuvers
are never profitable will be systematically investigated.

Queuing and scheduling are central to
the production of manufactured commodities, to the exploitation of congested
commons such as road networks and the Internet, and much more. The models that will be developed and analyzed encompass all these examples, and other simple scheduling protocols
with universal applicability. In the internet and many other congested
networks, cash transfers are not feasible, and randomization is the only way to
achieve fairness, typically by serving first a short job with a higher probability
than a long job. The simple shortest job first protocol fails to protect short jobs
from being "starved" by longer jobs. This research provides systematic solutions
to this problem, to the related disruption of job transfers accross users,
and to several other normative concerns.
1